Representation theory of infinite-dimensional Lie superalgebras and related algebraic structures

The proposal is concentrated around six interrelated topics:

(1) Quantum Hamiltonian reduction and representation theory
of superconformal algebras.

(2) Admissible representations of affine superalgebras
and elliptic functions.

(3) Non-linear Lie conformal superalgebras.

(4) Representation theory of finite simple Lie conformal
superalgebras and Lie pseudoalgebras.

(5) Representation theory of linearly compact Lie
superalgebras and the models of electroweak and strong
interactions.

(6) Classification of infinite-dimensional primitive Lie
superalgebras.

This research is motivated to a large degree by recent and
not so recent developments in Theoretical Physics, such as
the Standard Model and the Conformal field theory. It is
concerned with several directions of the supersymmetry theory.
Several longstanding open problems from Conformal field
theory have been and are being solved using the quantization
of the classical Hamiltonian reduction. The unifying notion
is the new notions of linear and non-linear Lie conformal
superalgebras, which are being under intensive investigation.